Preparing STEM Majors as Outstanding Certified Secondary Mathematics Teachers for South Texas

This project addresses a critical national need to increase the number of outstanding STEM majors prepared to enter the teaching profession as highly effective secondary mathematics teachers. School districts in South Texas, like many communities across the United States, continue to experience challenges attracting, preparing, and retaining qualified mathematics teachers. Teacher shortages and elevated rates of attrition following the COVID-19 pandemic have intensified these challenges, particularly in schools with historically high turnover rates. These shortages threaten the Nation's ability to prepare the next generation of scientists, engineers, technicians, and innovators needed to sustain economic prosperity, national security, and global competitiveness in science, technology, engineering, and mathematics (STEM).

This project seeks to generate new knowledge regarding the preparation of STEM majors as highly effective certified secondary mathematics teachers while strengthening local and regional educator workforce pipelines. The project is guided by a theory of change that assumes fostering professional belonging, strengthening academic preparation, and increasing college and career readiness among talented STEM undergraduates will increase entry into and persistence within the mathematics teaching profession. To advance these goals, the project will provide a formalized induction program and career readiness curriculum designed to support scholar success and promote excellence in mathematics educator preparation. Texas A&M International University will implement this project in partnership with Laredo Independent School District, United Independent School District, and Laredo College. The project plan draws upon existing research related to teacher retention, teacher residencies, high-impact educational practices, and mixed-reality simulation technologies for educator preparation. Four goals guide project implementation. First, the project will strengthen the effectiveness of the Future Educator Community in supporting approximately 50 high-achieving STEM majors and preparing 37 highly qualified mathematics teacher candidates over five years. Second, the project will enhance mathematics educator preparation curriculum to strengthen academic readiness and content mastery among STEM majors preparing to become mathematics teachers. Third, the project will expand enrichment and professional learning opportunities that increase career readiness and preparation for successful entry into the teaching workforce. Fourth, the project will collect, analyze, and disseminate evidence to assess needs, inform program improvements, evaluate effectiveness, and guide resource allocation decisions. External evaluators will conduct stakeholder interviews and analyze teacher candidate outcomes to generate findings regarding progress toward these goals. Investigators will use these data to generate new knowledge regarding effective approaches for preparing and retaining highly qualified secondary mathematics teachers in high-need school contexts. The broader impacts of this work include strengthening educator preparation partnerships, expanding pathways into mathematics teaching careers for talented STEM students, increasing access to highly effective mathematics instruction for thousands of secondary learners, advancing research and practice related to STEM teacher development, and improving institutional capacity for evidence-based educator preparation. By strengthening the domestic STEM educator workforce, the project contributes to NSF priorities related to scientific excellence, workforce development, economic competitiveness, and opportunities for all Americans to participate in and benefit from the Nation's STEM enterprise. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals in becoming effective K-12 STEM teachers and supports research on the effectiveness, preparation, and retention of STEM teachers serving high-need school districts.